The 1996 International Radiation Commission (IRC) Symposium 'IRS 96: Current Problems in Atmospheric Radiation'

The proposal is a request for support of a symposium "International Radiation Symposium: Current Problems in Atmospheric Radiation". The symposium will provide a forum for multidisciplinary discussion of remote sensing and physical/natural science studies related to atmospheric radiation. Ten science-discussion sessions are planned with participation from both international and US scientists expected. An emphasis of the symposium will be discussiojn of phenomena and processes relevant to high-latitude research. The symposium will bring together a large number of scientists studying a problem that is very important to the development of an upcoming research program, Surface Heat Budget of the Arctic Ocean.